Secure e-Commerce: A Modular Course Supported by Virtual Laboratories

Computer Science (31)

This project is building on the success of an existing software laboratory to support a computer science course on Electronic Commerce Technologies developed under a prior NSF award (DUE 0127300) to expand e-commerce education by developing and disseminating materials that focus on a key element of e-commerce technology: security. The goal of this project is disseminate materials from the previous project and to respond to one of the grand challenges in the field of computer science - writing secure software. The prior project was devoted to developing materials to be used in training students to program components of e-commerce stores. This project is developing, testing, and refining teaching materials that emphasize the security requirements of e-commerce software. The PIs are developing coordinated lecture materials and supporting software laboratory exercises ("virtual labs"), in the following critical areas:

(1) Cryptography - the mathematics of security;
(2) Professional ethics - a sense of responsibility should precede knowledge and empowerment;
(3) Detecting and defending against attacks - the technology of hacking;
(4) Wireless access - the enabler for mobile commerce;
(5) Web services - a new approach to e-commerce security;
(6) Authentication, authorization, and federation - the crucial web service components that facilitate identity management and trust sharing among disparate systems.

This technical approach differs markedly from the business/legal approach taken in many extant e-commerce courses. Project emphasis areas include:

- security and on secure coding philosophies, strategies, tools, and techniques;
- collaboration between a computer scientist and philosopher (ethicist) leading to an emphasis on professional ethics;
- use and evaluation of six types of interactive staff support: office hours, email, NetMeeting, IM, FAQs, and student-operated message boards;
- a "teach-the-teachers" workshop for 20-25 faculty in the three summers, to include faculty from community colleges, liberal arts colleges, and science and engineering programs;
- a well-designed effort to recruit women and minorities in every aspect of the proposed work;
- an emphasis on "programming in context" in which students can see the practical application and social value of their artifacts;
- providing staff to support faculty at other schools with their adoption, implementation, use, and evaluation of these materials; and
- a multi-institution qualitative and quantitative evaluation of whether and how these materials changed learning outcomes for the students.